Engineering Research Equipment Grant: Millimeter-Wave Instrumentation for Research on Dielectric Waveguides

Millimeter-wave instrumentation is acquired. This equipment has frequency coverage in the 50-75 ghz range or 5 mm wave band at center frequency and is an instrumentation system used to conduct experiments for open-boundary dielectric systems now being analyzed theoretically by the researchers.